Geometry, topology, and dynamics in negative curvature

Abstract

Award: DMS-1016098
Principal Investigator: Jean-Francois R. Lafont, Michael
W. Davis, Pedro Ontaneda

This is a proposal to provide funding for the conference
Geometry, Topology and Dynamics in Negative Curvature to be held
in Bangalore, India, during the week of August 2-7, 2010. The
conference is an official satellite conference to the 2010
International Conference of Mathematicians (held in Hyderabad,
India). The goal of this conference is to bring together
mathematicians working on different aspects of negatively curved
spaces. It will bring together three distinct communities of
mathematicians: geometers, topologists, and dynamicists. It will
provide a forum for sharing the most recent developments in the
study of spaces of negative (and more generally, non-positive)
curvature. A selection of topics that will be touched upon in the
conference include: (1) Gromov hyperbolic groups, CAT(0)-groups,
and geometric group theory, (2) spaces of metrics (Teichmuller
space, moduli space, representation varieties), (3) links with
3-dimensional topology (Geometrization conjecture, mapping class
groups), (4) links with high-dimensional topology (Novikov
conjecture, Borel conjecture), (5) analysis on boundaries of
groups and spaces, (6) Anosov flows and dynamics, (7) flows on
homogeneous spaces and applications to number theory. We expect
the conference to provide a "snapshot" of the current state of
our knowledge in matters related to nonpositively curved spaces,
as well as to provide a roadmap for future research in this
interdisciplinary field.

Curvature is a fundamental notion in geometry. Zero curvature is
the most physically familiar, and corresponds to an ordinary flat
surface. Positive and negative curvature can be described
relative to the familiar zero curvature setting as follows: one
tries to "flatten" the surface near a point, and looks to see if
there is too little or too much fabric to achieve the
flattening. For instance, the surface of a cone or of a cylinder
can be unfolded to lie flat, so these also have zero curvature.
But if one tries to flatten the surface of a sphere (think of the
skin of an orange), there is not enough fabric to do this
(i.e. the skin of the orange splits), which corresponds to
positive curvature. Alternatively, if one tries to flatten a
saddle shaped surface, folds appear. There is too much fabric,
which corresponds to negative curvature. A space of nonpositive
curvature can now be described as one having the property that,
near every point and for every pair of directions, it looks
either flat or like a saddle shaped surface. Surprisingly, such
spaces are much more prevalent than one would initially
guess. Aside from the field of geometry, they naturally appear in
numerous other fields of mathematics: topology, dynamics, number
theory, representation theory, etc. Aspects of nonpositive
curvature have also made an increasing appearance in more applied
fields, wherever there has been an interest in understanding the
"shape" of objects (special relativity theory, crystalline
structures in organic chemistry, configuration spaces in
robotics, etc). This conference will bring together international
experts working on various aspects of nonpositively curved
spaces. The conference web site is http://www.icts.res.in/program/gtdnc.